Sponsorship of the Seventh International Congress on Toxic Combustion Byproducts

ABSTRACT
CTS-0118561
University of Utah
JoAnn S. Lighty

Support is provided for students to attend the Seventh International Congress on Toxic Combustion Byproducts to be held June 4-6, 2001 in Research Triangle Park, NC.